New Problems from Research for Undergraduate Physics

A new category of physics problems suitable for intermediate-level undergraduate physics courses will be developed and published. These problems are to be derived from current or recent work of physicists actively engaged in research. They are to exhibit new, interesting, or particularly insightful applications of undergraduate physics to problems, phenomena, or results of contemporary physics research. They will be published first in the American Journal of Physics under the title of "New Problems" and then subsequently in a loose-leaf format as a resource for teaching undergraduate physics.